Planning Grant: An I/UCRC Center for Visual Decision Informatics

A planning meeting will be held to determine if an Industry/University Cooperative Research Center for Visual Decision Informatics will be established at Oregon State University. The focus of this center will be to develop new visual and analytic methods that leverage modern computer hardware and software, and develop analysis and discovery tools that can be applied to this complex data-based decision-making process.

This center will have direct and indirect impacts on industry. The center will be collaborating with the industrial partners on a regular basis, and at the biannual meeting to facilitate the transfer of ideas and information. The Center will impact industry by being a vehicle to increase the production of students. The collaborations with industry will also improve the educational abilities and allow students to be better prepared and more industry-aware.